U.S.-Mexico Plannning Visit: Linking human socioeconomic systems with marine ecosystem functioning along the Pacific coast of Baja California, Mexico

0129002
Gonzalez

This Americas Program will support a planning meeting in La Paz, Mexico, jointly organized by Dr. Laura I. Gonzalez-Guzman, of SUNY and Dr. Sergio Hernandez-Vazquez of the Centro de Investigaciones Biologicas del Noreste, in La Paz, Mexico. The organizers plan to develop a collaborative and interdisciplinary research project aimed at building a conceptual framework for linking the socioeconomic dynamics of community-based fisheries with the dynamics of natural ecosystems, and determining how these joint forces influence the marine environment and the sustainability of fisheries in the Northern Pacific West Coast of Mexico.

The meeting will involve scientists with backgrounds in ecology, fisheries science, economics, resource management, and geography from the US and Mexico. The research program that will be the outcome of this planning meeting will have three main components: an ecosystem component, a socioeconomic component, and an education and outreach component. Ultimately, the project will serve to develop now approaches to fisheries management in Baja California and models and guidelines for management and conservation to be applied to the coastal fisheries of the Pacific region.

***